Cytoskeletal Involvement in Autographa Californica NPV Production

Autographa californica nuclear polyhedrosis virus (AcNPV) is a baculovirus that is useful both as an expression vector and as a biological pesticide. Optimal performance of this virus in both applications depends upon our knowledge of host cell factors involved in viral gene expression and replication. Available data suggests that cytoskeletal elements, especially actin microfilaments, are critically involved in viral replication. The goal of the proposed research is to learn more about cytoskeletal involvement in viral gene expression and replication and how cytoskeletal elements might be regulated in lepidopteran cells. The research involves documenting changes in the immunofluorescent staining pattern of microfilaments, microtubules, and intermediate filaments throughout the course of infection, monitoring how infection is affected by substances known to interact with cytoskeletal elements and cytoskeletal regulatory elements, and determining the role that cell shape plays in infection. Principal research methods are immuno-light and electron microscopy, cell extractions, protein radiolabelling and electrophoresis, and dot-blot hybridization. The results of these studies will not only shed light on the importance of host- cell cytoskeleton structure on the reproduction of this virus, but aid materially in its development as a biological pesticide and potential expression vector. More generally, these studies will be significant in understanding the nature of molecular and genetic interactions between parasites and their host.